Abstract Parsing: Static analysis of dynamically generated string output

This project provides an automated, formal-methods-based methodology and tool
that analyzes and validates, in advance of its execution,
PHP, Perl, or Javascript programs that dynamically generate
HMTL, XML, and SQL documents.
Such document-generator programs are common to the World Wide Web and are
notorious for generating ill-structured, faulty, and dangerous
documents that cause subsequent server errors or security breaches.

The methodology integrates techniques from
LR(k)-parsing, data-flow analysis, and program security
to synthesize the program-analysis.
Given the program (e.g., a PHP script) that generates documents and given the
context-free reference grammar for the document language
(e.g., a grammar for HTML),
the analysis tool generates an LR(k) parser for the reference grammar
and applies a data-flow analysis to analyze the program and
predict the context-free grammatical structure of the
documents to be generated by the program.
The tool computes abstract parse stacks, a novel and innovative structure
that encodes a generated document's context-free structure.
Next, the tool applies formal semantics techniques to compute from
an abstract parse stack its context-sensitive semantics, that is, the
meaning of the dynamically generated document.

Dynamically generated documents are often assembled
with user-supplied input, which can be erroneous or malicious.
The analysis annotates the abstract parse stacks to identity
where user input might appear,
and the semantic analysis tracks the influence
of the user input upon the document's meaning.